ITR Collaborative Research: Toward Practical Graph-Based Coding Schemes For Reliable Wireless Communications

This project focuses on the physical layer of digital communication
system design - in particular on the design of graph-based error
control coding techniques for noisy, fading channels, such as those
encountered in wireless communication systems. The research
addresses those issues that have made practical implementation of
graph-based coding techniques problematic. Those issues include:

The development of LDPC and turbo codes with algebraic structure,
suitable for high speed implementation.
The development of LDPC and turbo codes with moderate block length,
suitable for practical real-time applications.
The design of bandwidth efficient coded modulation schemes
incorporating these new code constructions in order to "fatten the
bit pipe" in high data rate applications.
The adaptation of these new coding schemes for use in the fading
environment that characterizes wireless channels.